Stochastic Control and Related Topics

Since the identification and control of unknown stochastic systems is a basic problem in control theory, we intend to continue our research on stochastic adaptive control. We intend to study more extensively the adaptive control of partially observed, linear, finite dimensional stochastic systems based on our previous work. Some related problems of adaptive control for study are approximations to self- optimizing adaptive controls identification of time- varying parameters and asymptotic distributions.